Representation Theory, Quantum Groups and Piecewise-Linear Combinatorics

Arkady Berenstein investigates the area lying at the
crossroads of the Representation Theory of Lie Groups, Quantum Groups
and Piecewise-Linear Combinatorics. He studies canonical bases and
crystal bases, the multiplicities for the representations of reductive groups,
and the totally positive varieties. The main tools he uses for this study are
the valuations of the corresponding (quantum) algebras, the method of
involutions, convex polyhedra, rational maps and geometric crystals.

The subjects of Arkady Berenstein's research are combinatorial
structures in the area of Mathematics known as
Representation Theory of Lie algebras. These structures
naturally emerge in classical enumeration problems that arise
from physics, chemistry and other basic sciences in addition
to mathematics. Quite surprisingly, these purely
discrete structures have continuous counterparts.
Understanding the relationship between these enumerative
combinatorial structures and the geometric structure of their
continuous counterparts is a question of the greatest
importance. This relationship proved to be a useful tool in the
study of Langlands Correspondence -- the most mysterious
and inspiring correspondence between Algebra and
Geometry of the 20th century Mathematics.